International Symposium on the Science and Technology of Atomically Engineered Materials, Richmond, Virginia, October 30 - November 4, 1995

9503347 Jena This grant provides support for speakers, young researchers, postdoctoral associates and graduate students to attend the "International Symposium on Atomically Engineered Materials" to be held in Richmond, Virginia, from October 30 to November 4, 1995. This symposium will bring together researchers from around the world and representing many disciplines to discuss issues relating to designing materials from their basic constituents at the atomic level. The grant is jointly funded by the Divisions of Materials Research and Chemistry. %%% ***